Mathematical Sciences: Exact Controllability and Uniform Stabilization for Higher Dimensional Wave and Plate Equations

This proposal is for the support of graduate students involved in a project under the direction of Professors Lasiecka, Triggiani and Lagnese. The particular project is related to the boundary control of systems described by wave-type partial differential equations defined as a bounded domain in many dimension space. Problems to be investigated include those of exact controllability, uniform stabilization, and robustness of asymptotic stability properties under structural perturbations. Applications of the theoretical developments mentioned above are widespread in mechanical and electrical systems. One example might be the reduction in oscillations in large space structures. Another might be related to the control of robot arms. This activity will contribute to the training of scientists who can address some of the challenges facing modern engineers.